High Spatial Resolution Observations of Titan During an Occultation

AST-0123509
Young, Eliot

The Advanced Electro-Optical System (AEOS) on Haleakela, Maui, Hawaii of the US Air Force with its adaptive optics system will be used to determine the density as a function of altitude and the structure of the atmosphere of the satellite of Saturn: Titan. The observational plan is to observe a stellar occultation and measure intensity and spatial distribution as the light from a background star passes (refracts) through the atmosphere of Titan. The A/O system has been shown to lock-up and correct wavefront errors using Titan as the source.
***